CAREER:Exploiting Binary Rewriting to Analyze and Alleviate Memory Bottlenecks for Scientific Applications

Today, high-performance clusters of shared-memory multiprocessors (SMPs)
are employed to cope with large data sets for scientific
applications. On these SMPs, hybrid programming models combing
message passing and shared memory are often less efficient than pure
message passing although the former fits SMP architectures more
closely.

The objective of this work is to determine the sources of
inefficiencies in utilizing memory hierarchies of SMPs and to optimize
memory behavior. The novelty lies in the reliance on
dynamic binary rewriting, i.e., performance analysis and tuning are
performed on the application while it executes.

The technical challenges are to

1) develop a framework for dynamic binary rewriting,
2) determine coherence traffic resulting in misses for
non-deterministic orders of executions in the presence of parallelism,
3) identify memory bottlenecks,
4) determine data dependencies between data references for
hot-spots for binaries,
5) study the potential for memory-improving program transformations
on the executing binary and
6) evaluate the merits of optimizations for large-scale benchmarks
among others.

The key intellectual merit is in providing additional, dynamic
optimizations for long-running applications. The broader impact of
this work lies in its contribution to counter the increasing gap
between processor and main memory speeds by fully
exploiting software optimizations.